Hadronic Physics with Electromagnetic Probes at HERMES

The physics program supported by this grant is directed at the study
of experimental nuclear physics at the HERA collider ring in
Germany. Research will be carried out in high energy electron
scattering to put constraints on General Parton Distributions that
eventually allow the construction of three-dimensional images of the
proton. These studies also provide the possibility to measure the
contribution from orbital angular momentum to the nucleon spin, the
most elusive contribution so far in our quest to solve the nucleon
spin puzzle. Education and training of both, undergraduate and
graduate students, and postdoctoral scholars, as well as outreach
aimed at the general public is an important aspect of this research
program.